Chapman Conference on the Physics of the Magnetopause; March 14-18, 1994; San Diego, California

9318383 Spilhaus This award will support participant support costs for attendance at the Chapman Conference on The Physics of the Magnetopause, to be held in San Diego, California, March 14-18, 1994. Chapman Conferences are topical meetings sponsored by the American Geophysical Union and are designed to promote opportunities not normally available through the format of larger meetings. The magnetopause is the outer boundary of the magnetosphere and is the site of many complex plasma phenomena. Understanding these processes is important in explaining the entry of solar wind plasma into the magnetosphere. The conference will bring together leading experts and students to discuss current research and future efforts. ***